Nitric Oxide Decomposition and Reduction on Copper Based Catalysts

Copper ZSM-5 is the most active catalyst known for reduction and decomposition of nitric oxide, but has limitations that limit it use in practical situations. This effort tests the theory that the active site consists of cuprous ions stabilized by the zeolite matrix. Other oxides such as copper molybdenum oxide and copper zinc oxide are tested for nitric-oxide decomposition. In addition, the role of lattice oxygen on the reduction of nitric oxide by hydrocarbons in an oxidizing atmosphere is examined. Abatement of nitric oxide is an urgent environmental priority. Catalysts for converting nitric oxide to nitrogen in an environmentally benign manner are of great interest for pollution control from motor vehicles, power plants, and other sources.